Mathematical Sciences: Linear Analysis and Probability

This award is to support the activities of a Mathematical Sciences Research Group in Linear Analysis and Probability at Texas A & M. The activities of this group (whose fields cover Banach space theory, probability, operator theory, and operator algebras) are focused by a workshop where graduate students, postdoctoral students, invited researchers, and the faculty of the group meet to discuss their ongoing research. Funds from the grant would go towards the expenses of the workshop, and the graduate students and postdoctoral scholars in residence.